Career-Awareness Experiences in Science and Mathematics for High-Ability Junior High Students

The Career-Awareness Experiences in Science and Mathematics for High- Ability Junior High Students Project is a cooperative effort between Western Illinois University (WIU); Educational Service Centers; regional business/ industry; and regional school districts. The project will consist of a series of instructional and experiential activities conducted during a combination of two weeks on the WIU campus during the summer, internships with practitioners in the field, and a one-day fall semester session in November 1988. The major objective of the project is to introduce 24 high-ability 8th grade students from rural western Illinois to science and mathematics disciplines and careers. The instructional components include hands-on laboratory work related to a research area in each discipline, ethical and philosophical questions relevant to science research and technology, and information relating to career opportunities in science, technology, and mathematics. Project staff will include WIU faculty, with assistance from junior high school science teachers and representatives from business and industry.